Collaborative Research: CSR--AES: Interactive Parallel Platforms for Multi-Experiment Computational Studies

Scientists and engineers increasingly rely upon computational studies
involving multiple experiments (runs of simulation software) in domains
ranging from engineering design-space exploration to drug design.

This collaborative project develops foundations for a system that
facilitates interactive computational studies involving large numbers of
experiments, permitting the user to continuously monitor and steer how
the study unfolds, based on partial results. The work specifically
targets engineering design applications involving small-to-medium size
simulation problems running on tightly-coupled parallel machines, and
emphasizes (1) higher-level user control of the overall study; (2) reuse
of data from prior experiments in carrying forward new computations; (3)
dynamic management of system resources by relying on a tighter coupling
between application and system software; and (4) software reuse based on
common component architecture (CCA) compliance and standardization of a
more permeable system-/solver-level interface.

The system architecture builds upon the SCIRun2 framework and
incorporates modules for translating high-level user specifications into
required experiments, for allocating parallel machine resources to
experiments to optimize study progress, and numerical methods and
algorithms for estimating simulation time and resource costs.

The primary impact of the work is expected in engineering design, with
broader applicability to additional classes of biomedical and geometric
modeling applications. The project will also have important educational
applications, by creating hands-on simulated exploration experiences for
students, and by training system computer scientists with a deep
understanding of specific scientific domains, simulation frameworks, and
numerical solver interfaces.